Scalar Curvature, Geometric Flow, and the General Penrose Conjecture

Scalar Curvature, Geometric Flows, and the General Penrose Conjecture

DMS - 0206483 Hubert Bray, MIT

The primary goal of this research is to prove the full Penrose
conjecture in general relativity about the mass of black holes in
a spacetime. In 3+1 dimensions, this conjecture states that the
total mass of a spacetime with nonnegative energy density
everywhere is greater than or equal to the square root of the
total area of the event horizons of all of the black holes in the
spacetime divided by 16 pi. This conjecture can be thought of as
stating that the mass contributed by a collection of black holes
is at least the square root of their surface areas divided 16 pi,
so that nonnegative energy density everywhere else in the
universe forces the total mass of the spacetime to be at least
this amount. The Penrose conjecture is best thought of as a
conjecture on arbitrary three dimensional space-like slices of
the spacetime. In the special case that the space-like slice is
assumed to have zero second fundamental form, the conjecture is
known as the Riemannian Penrose conjecture. This conjecture was
first proved for a single black hole by Huisken and Ilmanen in
1997 and then for any number of black holes by the author in
1999. The author would also like to prove the Riemannian Penrose
Conjecture in dimensions higher than three and is close to
announcing this result for dimensions less than eight.
Dimensions eight and higher present additional geometric and
analytical challenges arising from the fact that the apparent
horizons of black holes manifest themselves as minimal
hypersurfaces which can have co-dimension seven singularities.
The positive mass theorem is also still open in these dimensions
for similar reasons, and is another very interesting related
problem.

The motivation for the above problems is to gain a better
understanding of General Relativity. While Einstein's theory of
General Relativity is experimentally the best known theory of
gravity, their are many theoretical questions about the theory
which are not well understood at all. For example, given the
universe at some initial time, do the Einstein equations have
unique well-behaved solutions in the future as one would hope, or
do singularities typically occur which might radiate or consume
energy for example? The theory also predicts the existence of
black holes, and astronomers believe that they have been able to
detect the location of many black holes including one which is
3 million times the mass of the sun at the center of our galaxy.
Since doing experiments with black holes is currently not
feasible, it makes since to understand this potentially very
important phenomenon on a theoretical level for now. This
research project hopes to lead to a better understanding of black
holes as well as energy and mass in General Relativity.